Nuclear Physics Summer School

This annual summer school in nuclear physics brings together five to six distinguished research scientists who lecture over a two week period to some forty advanced graduate students on frontier research in nuclear physics. The aim of the school is to prepare the students for productive reseach careers.